Interdisciplinary Workshop on Cell Signaling Networks; Aspen, CO, August 19 - September 9, 2001

0118032
Shraiman

The proposal seeks support for the developmental biologists participating in the interdisciplinary work on Cell Signaling Networks at the Aspen Center for Physics scheduled to take place Aug. 19 - Sept. 9, 2001. This workshop will bring together biologists studying a variety of eukaryotic signal transduction pathways and the role of cell signaling in embryonic development with a group of physicists and engineers interested in quantitative modeling of complex biological systems. The goal of the workshop is to seek ways to assimilate and interpret the rapidly accumulating empirical knowledge on signaling, to identify most useful subjects and approaches in quantitative modeling and to discuss the best experimental strategies for disecting complex signaling networks